CPA-SEL: Developing a Theory of Hygienic Macros

Modern software systems involve millions of lines of code. In many
systems, many of these lines are repetitions, with some variations, of
a few patterns. This repetition is necessary because current
programming languages require the programmer to spell out many details
over and over again. Such repetition is error-prone and increases the
cost and time-to-market of software systems. This research studies
syntactic abstraction, a technique to eliminate much of the repetition
in such systems.

This research aims to develop the theory of syntactic abstractions
(also called "macros") to put it on a par with procedural or data
abstraction. Its goal is to develop theories and tools that will make
syntactic abstraction easy. Its results are intended to make it
easier to write complex syntactic abstractions and that will allow a
language designer to make rational choices when designing a syntactic
abstraction facility. The main technical innovation is the inclusion
of binding patterns as part of the public interface of a macro.